Presidential Young Investigator Award: Concrete Properties and Construction Methods

This award provides research support under the Foundation's Presidential Young Investigator Awards (PYIA) program. Current and recently completed research includes a study of surface cracks in concrete slabs as a function of environmental conditions and surface finishing techniques. Work is also in progress on corrision of reinforcing steel and alkali-aggregate reaction. Plans for the immediate future include expansion of these projects, plus evaluation of the porosity of concrete as a function of construction procedures. Experimental work will be coupled with the development of an "Expert System" as a means of packaging advanced concrete technology in a manner accessible to the jobsite.